Phase Transitions and Critical Phenomena in NP-complete Problems

0200909
Moore

Many search and optimization problems that occur in the real world consist
of "constraint satisfaction" tasks where we wish to simultaneously satisfy
many demands. These problems occur in scheduling, manufacturing,
compilers, and many other contexts. Many of these problems are
"NP-complete," meaning that they can probably not be solved with less than
an exponential amount of computational effort. However, this definition
of computational complexity focuses on the worst case, not on the typical
cases we might find in the real world.

As a mathematical bridge between the worst case and real-world problems,
we will consider random, or average, cases of NP-complete problems. Many
people have observed that when the density of constraints passes a
critical threshold, these problems undergo a phase transition from
solvability to unsolvability. Approaches from physics have already helped
us understand this transition. We will prove rigorous upper and lower
bounds on the value of this threshold, analyze the performance of
heuristics that attempt to solve these problems quickly, and research the
effectiveness of the "Replica Trick" of statistical physics in this area.